Research Experiences for Undergraduates in Chemistry at the University of Virginia

Professor James N. Demas and other members of the Chemistry Department at the University of Virginia are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. During the summer of 1991, ten undergraduate students will spend ten weeks actively engaged in a variety of research projects. Some of the projects involve environmental weathering, membrane proteins, organic synthesis and molecular modeling. Students will participate in weekly research group meetings, seminars and field trips, prepare a final written report, and make an oral presentation at a minisymposium at the end of the program. Faculty members from each student's home institution will be invited to the symposium.